Analysis of Mathematical Models of Materials

The proposed project is aimed at analyzing mathematical models for liquid
crystalline and superconducting materials focusing on the electro-magnetic,
electromechanical, and electro-optical interactions that take place within
them. Mathematical models for superconducting materials to be analyzed
are based on the Ginzburg-Landau energy, and the project will include an
investigation of the qualitative behavior of mathematical solutions which
are important for applications such as high-temperature, anisotropic
superconducting materials, in the presence of applied electric and magnetic
fields. Mathematical models for liquid crystals to be analyzed are based on
De Gennes' models incorporating the Oseen-Frank energy terms as well as
terms accounting for smectic layering (present in chiral materials),
elasticity, and the influence of applied electric and
magnetic fields. A hierarchy of problems will be studied incorporating
more and more complex nonlinear interactions. Special emphasis will be
given to the analysis of scaling up from meso-scale models where the
physics is described to macro-scale models used in applications. Techniques
from mathematical modeling, partial differential equations, and finite
elasticity will be employed.

The project will result in a better understanding of the responses of
high-temperature superconducting materials and liquid crystalline
materials to applied magnetic and electric fields based on their microscopic
structure. Applications will include the design of appropriate superconductors
for power transmission and the creation of powerful magnetic fields.
Applications of the liquid crystal research include the design of smaller,
faster, and more accurate optical switches, nanoscale electro-mechanical
devices, and liquid crystal displays.